Computers, Engineering, and Mathematics Scholars Program

Minneapolis Community and Technical College is awarding annually 28 scholarships to financially needy, academically talented students who are pursing a course of study in computer science, information technology, engineering, or mathematics. The scholarship program is enabling students, who otherwise could not, to attend college full-time. With a college enrollment of the traditionally underrepresented minority groups reaching 46%, a significant number of whom are Native Americans, the program is successfully bringing members of these groups into STEM careers. A goal of the project is that 85% of the CSEMS scholars earn an Associate's degree within two years. A variety of student support services are being provided including academic and career planning, experiential learning opportunities, counseling, financial aid advice and student life programs. Local business and industry are providing summer internships for the students.